Workshop: Trace Gas Emissions from Plants; January 21-24, 1990; Pacific Grove, California

Many gases are exchanged between the atmosphere and the biosphere. Carbon dioxide, water vapor, and oxygen are directly involved in photosynthesis, the most quantitatively important process in the biosphere. The exchange of the gases involved with photosynthesis have been studied in detail and much is known about the biochemistry and biophysics of these exchanges. In addition to these major gases many trace gases are exchanged between the atmosphere and the biosphere. Some of these trace gases, such as methane, affect the radiative properties of the atmosphere and can contribute substantially to the predicted warming of the atmosphere, the greenhouse effect. Other hydrocarbons such as isoprene and monoterpenes affect atmospheric chemistry and lead to the production of ozone and carbon monoxide through photochemistry. Sulfur and nitrogen gases play important roles in ecosystem acidification and nutrient cycling and may also influence climate through the formation of cloud condensation nuclei. Very little work is currently being done by the plant physiology community on these trace gas emissions from plants. A three day workshop is therefore proposed to assemble the existing information, and determine what research is required to understand trace gas emissions from plants. This information will be assembled and published to stimulate and help guide research in this area.